RUI: Biochemistry of Nitrogen-Limited Growth of Wood Decaying Fungi

The goal of this research program is to elucidate mechanisms of sustained mycelial growth of wood-decaying fungi. In the model organism, Schizophyllum commune, proteolysis and recycling of amino acids supports mycelial growth during nitrogen limitation. S. commune produces a wide range of proteolytic activities, including members of the aspartic-, serine- and metallo-protease type enzymes. Two proteases that have increased activities during nitrogen-limitation are ScPrA (a serine-endopeptidase) and ScPrB (a metallo-endopeptidase). In addition, two aminopeptidases and a carboxypeptidase are also regulated by nitrogen. Objectives of the work proposed are 1) to extend the study of the proteolytic system in S. commune by using mutant analysis and molecular cloning of specific protease genes, and 2) to initiate studies designed to elucidate the regulatory mechanism(s) for proteases involved in intracellular protein turnover. Mutants will be screened by ability to hydrolyze chromogenic peptide substrates and gelatin. S. commune protease genes will be cloned using heterologous hybridization with protease genes from other fungi (particularly yeast), and by transformation/complementation testing in mutant strains. Cloned genes will be sequenced analyzed, and then used to generate probes to measure RNA transcript levels and to localize in situ protease mRNA under nitrogen-limiting conditions. Regulation of protease ScPrB by an endogenous inhibitor will be studied by standard biochemical techniques and mutant analysis. %%% Nitrogen is an essential nutrient for all organisms. In mushroom producing fungi, nitrogen must be obtained from the material upon which the organism grows. Often this "food" (leaf litter, wood) is a poor source of nitrogen. This limits the growth of the organism. However, even under nitrogen-poor conditions fungi may continue to expand by digesting older portions of its body, and recycling nutrients to younger, growing areas. The goal of the present work is to understand the cell mechanism of protein-nitrogen recycling in wood-decaying fungi. We will characterize the cell machinery required to digest proteins in older parts of the organism and see how this machinery is regulated at the molecular level. The research is important because it will provide insight into the basic cellular mechanism of protein and nitrogen metabolism of a diverse group of organisms. This group of organisms includes the edible mushroom, fungi that rot wood and wood products, and fungi that are pathogens on corn and wheat. An added objective is to provide research opportunities for undergraduate students to prepare them for careers in science and technology. This award is funded jointly by Metabolic Biochemistry (Division of Molecular and Cellular Biosciences) and the Functional and Physiological Ecology (Integrative Biology and Neuroscience) Programs.